Functional Organizations of Segmental Reflexes During Natural Multi-Articular Movements

The control of complex movements involves the integration of central motor programs and inputs from sensory receptors in muscles and skin that are activated by the movements themselves and by external stimuli. These sensory receptors provide powerful inputs to spinal reflex circuits that can significantly modify ongoing movements. Each modality of sensory input from the periphery has multiple, parallel connections with the spinal cells (motoneurons) that activate muscles. These pathways can be either excitatory or inhibitory, and they can be distributed to motoneurons that activate either extensor or flexor muscles. The purpose of this award to Dr. Carol A. Pratt is to study the role of peripheral sensory inputs in the control of standing (stance). The hypothesis to be tested is that the functional organization of spinal reflexes dynamically changes depending on the characteristics and requirements of the movement so that sensory feedback can be used optimally to fine tune the movement. This research will provide information about the role of sensory inputs in the control of the complex, multi-articular movements, which comprise stance. This basic knowledge will contribute to our understanding of posture control, and will provide important information that can be used in the technical development of prosthetic devices.